Gaseous Electronics Conference; Atlanta, Georgia; October 13-16, 1987 (Physics)

The conference deals with basic collisional, radiative, and plasma processes important to the understanding of ionized gases. Emphasis is given to the underlying electronic, ionic, atomic, and molecular processes that occur in electric discharges, arcs, and gas lasers and to the relevant aspects of atomic and molecular structure, photon interactions, and plasma effects that occur in discharges, arcs, and gas lasers. The conference is a meeting for researchers working on processes important in discharges, arcs, and gas lasers, especially physicists, chemists, and engineers. Academia, government, industry and national laboratories are well represented at this meeting. The program consists primarily of contributed papers together with workshops and invited papers on topics worthy of special interest.